16th Fall Workshop on Computational Geometry

The workshop is taking place at Smith College on 10-11 November 2006. Smith College is a small all-women Liberal Arts College with a strong tradition in the Sciences. The Fall Workshops on Computational Geometry (CG), originated at Stony Brook in 1991. This workshop is a forum for reporting ongoing state-of-the art research in many areas of theoretical and applied CG. Its focus is to involve undergraduates in CG research. Open problems and ongoing challenges to the field, are being be presented with the intention of motivating new researchers, particularly students. The workshop features undergraduate research. The results of the workshop will be widely disseminated by means of the internet, with talk abstracts and a detailed list of problems discussed.